Computer Projects and Software for the Introductory Linear Algebra Course

The introductory linear algebra curriculum that is typically part of the two-year calculus sequence is being revitalized by the introduction of computer projects and related material. The projects are diverse in nature, ranging from those that explore mathematical concepts to those that involve mathematical models.